Integrated Structure/Actuator/Control Design of Trajectory Pattern Tuned Computer Controlled Ultra-High Speed and Accuracy Machine (GOALI)

The GOALI industry-university collaborative research project deals with simultaneous design of trajectory pattern tuned computer controlled machinery for ultra-high speed and accuracy applications such as lithography, bonding, and inspection in the electronics industry as well as for the production of high quality optical components instruments. The mail goal of the project is to develop a trajectory- pattern based, systematic methodology for simultaneous design, optimization, and fine-tuning of all subsystems (structure, actuator, control) of a computer controlled machinery to achieve ultra-high performance for the classes of specified tanks. The project also involves the detailed design, construction, and system integration of a testbed for high-performance machinery. The testbed will be used to evaluate the effectiveness of the design methodology, the performance of the constructed systems, its various components and motion synthesis and control algorithms. By designing and tuning system parameters for the actual trajectory patterns that a high-performance machine is required to perform, one can fully take advantage of the interaction among the machine structure, the actuators, and controllers to achieve ultra-high performance with significant; cost savings. The multidisciplinary project is to be carried out in a period of three years in collaboration with three companies (Anorad Corporation, Morgan Matroc Electro Ceramics Division, and OmniTek Research Development, Inc.) with expertise ranging from machine design, dynamics, control, design of passive and active vibration damping elements, system integration, as well as manufacturing of piezoceramic-based active components. The project demonstrates how both universities and manufacturing and engineering industry may benefit from cooperative research in the development, application, and integration of available and emerging technologies in the field of optimal design and operation of ultra-high performance production machinery.